CSR-EHS: An Extended Theory for Temporal Composition of Distributed Real-Time Computing Systems

One of the fundamental advances in computing in the next decade will occur at the interface between the logical and physical realms. Future computing systems will see increased convergence of computation, communication, and sensing. They will be marked by massive distribution and will augment the physical environment, interacting with it under constraints of real time and space. This project develops a fundamental theory for computing the real-time capacity of such future systems which quantifies their ability to do timely work. A mathematical foundation is developed for composing real-time capacity expressions given application flow graphs, time constraints and resource topology. This foundation utilizes a small set of composition rules to arrive at application-aware capacity expressions. The project also considers the limits when system components become infinitesimal and the number of components needed for an application grows to infinity. Once a capacity region is constructed for a distributed system running a set of applications, various optimizations can be performed such as finding the point of maximum throughput within the capacity region.